Geometry over local fields and local and global Galois representations

Most quantities of interest in the physical sciences and in practical life cannot be measured directly, but can only be accessed by solving equations. Algebraic number theory is the branch of mathematics devoted to understanding the solutions of numerical equations that cannot in general be solved exactly. This understanding is expressed most efficiently in the language of Galois theory, which studies the hidden symmetries of solutions of equations, and in the language of geometry, which describes the different ways solutions can fit together. The most striking discoveries in algebraic number theory during the past century have been based on the interplay between these two perspectives, most frequently in the frameworks provided by the Langlands program and the theory of motives, which together provide the most sophisticated unification of Galois theory with geometry. The current project continues the PI's approach to these questions, developed over several decades, with two main aims. The first is to complete some of the Langlands program's principal goals, and to apply them to outstanding questions is number theory. The second is to make use of the new geometric theory of divisibility — the oldest theme in number theory, now known as the geometry of local fields — to provide new insights into the theory of automorphic forms, the basic and most computable objects in the Langlands programs, and those most directly relevant to applications in physics, cryptography, and communications. The expected solutions to these problems will provide the starting point for research by the PI's doctoral students and will be presented at conferences and in seminar talks, thus serving as the basis for training the next generation of specialists.

This project aims to bring several chapters in algebraic number theory closer to completion, and to begin several new chapters. In the first place, the PI, together with several groups of collaborators, expects to come very close to completing the construction of the local Langlands correspondence for general reductive groups. This involves two separate projects: one based on ongoing efforts to define canonical integral models of exceptional Shimura varieties and to apply their geometry to study their associated Galois representations; the other building on the PI's recent collaborations on the Galois representations attached to automorphic forms over function fields, which combine methods of harmonic analysis with the arithmetic Taylor-Wiles method. In the second place, new methods in p-adic geometry now make it realistic to aim for a complete theory of the p-adic L-functions attached to automorphic forms. This in turn offers the prospect of developing systematic applications of p-adic L-functions to motivic cohomology in higher dimensions, in the spirit of the p-adic Gross-Zagier formula. Finally, in a different direction, Grojnowski has sketched a strategy for classifying irreducible mod p representations of groups over local fields of characteristic p, inspired by the theory of Kac-Moody groups; the PI intends to develop this strategy with Grojnowski and other specialists in geometric representation theory.